Undergraduate Biochemistry at OSU

9451848 Blair Multiple laboratories in Biochemistry are now offering advanced investigation in separation techniques, using HPLC interfaced to computers for data acquisition and analysis. Students are participating in research projects as well